Climate Change Education Special Themed Issue of The Earth Scientist

This project is supporting a special themed issue of The Earth Scientist, the quarterly journal of the National Earth Science Teachers Association (NESTA) on climate-change education. The issue includes submissions from climate-change educators that compile existing resources, many recently developed, that are suitable for K-12 Earth- and Space-Science classrooms and based on peer-reviewed science. The issue is being distributed at NESTA and the National Science Teachers Association (NSTA) events and conferences and is available for download at the Windows on the Universe website.